Thermal Studies of Near Earth Objects with AEOS

DC Jewitt
0087843
Abstract AEOS

The albedos and sizes of Near Earth Asteroids (NEA) are measured to understand their size distribution, composition and to provide indications of their origins.

Determination of sizes is the primary goal. Secondary goals include determination of thermal phase coefficients, an assessment of the diversity of NEO surface types, and address the uestion of the ratio of asteroidal and cometary sources of NEO's. The Advanced Electro-Optical System (AEOS) of the Air Force with the adaptive optics system provides state-of-the-art adaptive optics tools for these measurements.

This effort has participation by graduate students and an excellent program for student education.
***